Conference: 2024 Quantum Science Gordon Research Conference and Seminar

This grant supports expenses of U.S. graduate students and early career researchers to attend the 2024 Gordon Research Conference (GRC) on Quantum Science, which brings together top researchers and future leaders in the field quantum information science. The 2024 Gordon Research Conference (GRC) on Quantum Science will be held on July 28-August 2, 2024 at Stonehill College, Easton, MA.

Gordon Conferences have a 50-year tradition of communicating and stimulating the most exciting new research in fields such as atomic, molecular, and optical physics, and quantum information science. The 2024 GRC on Quantum Science session themes include: new applications of quantum advantage; quantum dynamics and information scrambling; interfacing quantum computers with quantum materials; advances in quantum metrology and quantum sensing; and emerging quantum science platforms and applications.